Lattice Modeling Approach to Multidimensional Signal Processing

Lattice parameter characterization of one-dimensional random processes has become a well developed theory with many applications to linear estimation, spectral analysis, speech coding and synthesis, system identification, and control systems. This research is directed towards the extension of this theory to two-dimensional scalar image fields and multidimensional random fields. In particular, the connection between the very rich theory of scattering/inverse scattering problems and the lattice section structure will be examined. Central to this connection is the cascade and the nesting properties of the lattice filter where the addition of a new section does not change the previous sections. This work lays the basis for a theory of lattice modeling which is crucial to applications to multidimensional data processing, pattern recognition, and digital filtering.